A Chromatography Module for the Chemistry Curriculum

The new chromatography curriculum is exposing all of the chemistry majors and many additional students to GC employing temperature programming, capillary columns, TCD, FID, and GC/MS; and to HPLC utilizing normal phase, reverse phase, ion and GPC columns; isocratic and gradient elution; and UV, fluorescence, conductivity, and refractive index detection. These students are gaining experience in the use of computers for data collection and analysis. They are increasing their ability to use computers to prepare formal scientific reports incorporating the analyzed data. In addition to the 2 HPLC's (one a gradient system), a GC/MS, and several student model GC's previously available in the department, this project has added a dual column, microprocessor controlled gas chromatograph with temperature programming and capillary column capability, a refractive index detector for HPLC, and a PC based chromatography data station. Thus, the experiments in seven courses and student-faculty research is extending the students' understanding and appreciation of chromatography as a tool for a wide variety of applications as well as giving them experience using computers and computer controlled instrumentation for chemistry laboratory applications. The grantee is matching the award from non-Federal sources.